!nformalScience.org: Building a Web Community for Informal Science

The University of Pittsburgh Center for Learning in Out-of-School Environments (UPCLOSE) proposes to redevelop its web-site, http://www.informalscience.org, which has become the primary online resource for researchers and practitioners dedicated to dissemination and development of knowledge about informal science and learning. The redesigned site will include more multimedia elements, an expanded research database and an improved search function. The site will be expanded by adding a quarterly Informal Learning Research newsletter (with the American Educational Research Association), conference reporting, interview articles, monthly evaluation tools and tips articles, Informal Science in the News clipping service, Research Toolkit and a listserv. It also will include digitized resources of the Visitor Studies Association.

This web-site will support the continued creation of a cumulative body of empirical research and improve connections between research and practice. In so doing, it will foster the continued development of a community of practice in informal STEM education. This project will significantly enhance a major element of the infrastructure for this field.